Studies on Integrality of Ideals

This project deals with questions in commutative algebra. While the
questions address a variety of topics, there is an underlying
common thread that unifies them all: the theory of integral closure.
The PI, together with her collaborators, first plans to develop
methods that produce the integral closure of an ideal. In joint work
with Bernd Ulrich the proposer has established that linkage is a
method for capturing integral elements over a complete intersection. Now
the investigator wants to extend this same procedure to Gorenstein
linkage and residual intersections. Second, the PI intends to clarify the
connection between the core of an ideal and the adjoint of Lipman (or the
multiplier ideal of Ein and Lazarsfeld), find an explicit formula for
the core, and compute the core of monomial ideals (a question posed
by Eisenbud and Sturmfels). The investigator intends to use linkage
theory, residual intersection theory and Groebner basis theory.
Third, the investigator would like to study the special fiber ring. This
object is very important from a geometric point of view because it
encodes algebraic information on the special fiber of the blowup. The
focus here is on finding conditions that force the fiber to be unmixed or
even Cohen-Macaulay. Last, the PI plans to study the Hilbert function of
zero-dimensional normal ideals (an ideal is normal if all its powers are
integrally closed). One of the proposer's goals is to show that all the
Hilbert coefficients of such ideals are non-negative, while another goal
is to characterize the vanishing of the Hilbert coefficients in terms of
the Cohen-Macaulayness of the associated graded ring of the ideal
itself or of one of its powers.

The proposed research is concerned with problems in commutative
algebra. On a basic level commutative algebra is about techniques
for solving systems of polynomial equations. Commutative algebra
had a revolutionary growth in the past fifty years as it provided
the tools for understanding many problems in pure and applied
mathematics. In many applied problems, polynomial equations and
hence commutative algebra play a crucial role. Applied areas where
commutative algebra results have been used in the past include
operations research, computer science, robotics, control theory, coding
theory and cryptography to mention a few.